MGR Honorable Mention: Nancy Vazquez-Maldonado

This special award will give Nancy Vazquez-Maldonado additional flexibility in pursuing her graduate studies and research initiation in cellular and molecular biology. This award strengthen minority research participation in this area.